Religious Missions, Social Change, and Resistance to Authority (Sociology)

9320808 Miller This is a study of the circumstances under which religious missions resisted the policies of political and economic interests associated with colonialism, and contributed to forces of democratization in colonies of the European powers and other developing countries. Data will be collected from archives located in Germany, Norway, Switzerland, England and the United States, and these data will concern missionary work in nations such as Ghana, Cameroon, India and China. Comparative and interpretive analysis will contrast conflict theories with Weberian theories of values. Among the hypotheses to be explored are the possibility that the secular effects of the missionary movement often went beyond the expectations or even contrary to the intentions of the participants. Another hypothesis is that religious opposition to the political and economic interests to which the missions were symbiotically tied was especially likely to occur when a religious vision of the ideal social structure was threatened. %%% This project will contribute to the sociology of religion, and it will improve our general understanding of colonialism and imperialism. Extensive religious missionary movements exist today, and this historical study will provide the theoretical and factual basis for understanding their consequences for the developing democracies in the modern world. ***